Characterization and Recognition of Perfect Graphs

A graph is perfect if for every induced subgraph, the chromatic
number is equal to the maximum size of a complete subgraph. The
Strong Perfect Graph Conjecture (SPGC) of Berge from 1960 asserts
that a graph is perfect if and only if it has no induced subgraph
isomorphic to an odd cycle of length at least five, or the
complement of such a cycle. A related open question is whether
perfectness can be tested in polynomial time. The PI and his
colleagues are pursuing a strategy for proving the SPGC. They
have formulated several conjectures about graph decomposition
that together with earlier conjectures and results imply the SPGC,
and are working toward establishing the validity of those
conjectures.

This work falls within the area of graph theory, and is closely
related to theoretical computer science and mathematical
programming (operations research). A graph is an abstract
mathematical notion used to model networks, such as telephone
networks, transportation networks or the Internet. Within graph
theory the class of perfect graphs is important for several
reasons. For instance, many problems of interest in practice that
are intractable in general can be solved efficiently when
restricted to the class of perfect graphs. Also, the question of
when a certain class of linear programs always have an integer
solution can be answered in terms of the perfectness of an
associated graph. Thus the Strong Perfect Graph Conjecture is
believed to be an important open problem, and its resolution
is likely to have implications in the design of efficient
algorithms of interest to theoretical computer scientists and
operations researchers.